The Advanced Spectroscopic Imager

AST-9731052 ABSTRACT Funds will be used to develop the Advanced Spectral Imager (ASI) which will use Fabry-Perot interferometry to provide high spectral resolution images with sub-arcsecond image quality over a wide field of view. The ASI will provide two-dimensional maps of velocity, spectral line strength, and spectral line width for astronomical objects. The ASI design is based on successful experience with the Rutgers Imaging Fabry-Perot system currently in operation at CTIO.